Scientific Computing Research Environments for the Mathematical Sciences (SCREMS) at IIT

The Department of Applied Mathematics at the Illinois Institute of Technology
will purchase a high performance computer cluster of 128 processors with
supporting software, which will be dedicated to the support of ongoing research
projects and educational efforts in large-scale parallel computing. The
equipment will be used for seven research projects in applied mathematics,
which require intensive computer simulations. Mathematically, all projects are
related to modeling, numerical analysis and simulation of deterministic and
stochastic (partial) differential equations, covering a wide range of
applications that include materials science, geoscience, finance, biology,
environmental fluid mechanics, plasma physics and software engineering.

The proposed program will provide excellent training opportunities for graduate
students in parallel computing and offer them easy access and hands-on
experience to a high performance computing cluster. Four courses in
computational mathematics will be enhanced by incorporating parallel
computation, which will benefit both graduate and undergraduate students from
different disciplines, including Applied Mathematics, Biomedical Engineering,
Mechanical Engineering, Aerospace Engineering, Electrical Engineering, Civil
Engineering and Computer Science. The PIs in the proposal have outstanding
track records of recruiting and scientifically nurturing women and
underrepresented minority students and the grant will enable them to train
these students in state-of-the-art scientific computing. On the technological
and social aspects, the proposed cluster will provide support for seven
research projects that have applications to a broader set of related problems
including global climate change, option pricing, membrane-based drug delivery,
environmental research and monitoring, and large-scale computing software.

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)